Improvement and Validation of Glacier Dynamics Models: A Collaborative Study

This award is for support of a three year collaborative program between the University of Colorado, Boulder and the University of Wyoming, Laramie to improve and validate glacier dynamic models. An isothermal, active glacier will be selected and the surface, englacial, and basal velocity field will be determined on a 3-D array of points over the glacier. These results will be used to test an improved top-down model, to compare top-down and bottom- up models, and to define further the constitutive law and sliding relations.